SBIR Phase I: Low Band Gap Semiconducting Polymers for Photovoltaic and Photosensing Applications

This Small Business Innovation Research Phase I project outlines a strategy to develop a family of photosensing polymers with low energy band gaps. Such polymers will find application in the area of polymer image sensors and polymer photovoltaic cells. Products that will utilize these polymers include large area flexible sensors for scanning. The use of these sensors for office automation, industrial production controls and home electronics are a vast, untapped commercial market.